Laboratory Adaptations for an Undergraduate Optics Initiative

Physics (13) A new optics initiative at Calvin College is providing students with marketable technical
training in the optical sciences and introduces an optics concentration and an optical-
technology minor into the physics curriculum. The programs target students in physics
and engineering, as well as pre-service teachers preparing to teach science in high school.
Curricular changes include the reconfiguration of several physics courses and the
introduction of an intermediate-level course entitled Phys 246: Waves, Optics, and
Optical Technology. Based on a mentor/apprentice pedagogical model, this course will
make use of a fully integrated lab-plus-lecture format, an approach with which Calvin's
science-education specialists have already had great success in courses for pre-service
elementary school teachers. The new pedagogical method will also influence the way in
which students are mentored in a new upper-level lab course, Phys 383-384: Advanced
Optics Laboratory. The project involves adaptations of labs for both the intermediate
and the advanced courses, so that the optics initiative can effectively address its two-fold
goal of cultivating technological knowledge and skill and providing a fresh model of
teaching by hands-on inquiry.
The labs are adapted from labs used at other institutions and from the
research projects of the PI and Co-PI. The curriculum for Phys 246 is taken largely from
a course at the University of Maryland taught by Dr. Wendell T. Hill, who is
providing advice on a continuing basis. Certain individual labs (at both intermediate and
advanced levels) are based on existing experiments and input from faculty at Caltech,
Harvard, Harvey Mudd College, and the National Institute of Standards and Technology.
Still others are a natural outgrowth of the PI's research on laser-cooled and trapped
atoms and plasma diagnostics and the Co-PI's research on diode-laser applications and
spectroscopy.